Research Training Group in Cellular and Molecular Biodynamics

9413198 Jordan This award to Frank Jordan and a group of 11 other faculty will support a multi-disciplinary training program in biophysical aspects of cellular processes at Rutgers University-Newark, an urban campus with significant enrollement of minority students. The faculty group have excellent research programs in three related areas: structure and dynamics of biological macromolecules, analysis of cellular transport mechanisms, and biophysics of excitable cells. The award will support training of students at the undergraduate and graduate levels; funds awarded will provide student stipends and tuition, purchase research instruments and supplies to be used by trainees, seminars by outside experts and student travel. Current training activities will be enriched by three new laboratory courses and additional required rotations in faculty laboratories. ***